Visualization--Based Visual Programming

Visualization-based visual languages, a new class of visual languages are based upon visual models derived from common and useful program visualizations. In this project, visualization models which may also be useful as programming models shall be collected in a number of problem domains. A visual language for the specification of communications protocols based on message-flow diagrams will be implemented.